LSAMP Pacific Alliance Phase II

Building a National Model for Excellence in Native American Higher Education Programs
LSAMP Pacific Alliance
University of Alaska Anchorage
The Pacific Alliance Universities
University of Alaska Anchorage
University of Alaska Fairbanks
University of Hawai'i Manoa
University of Washington
Alaska Native Civil Engineering graduates Andy White and Michael Nabers
helped architects and engineers to design a new 12,000 square foot building on
the UAA campus to house the Pacific Alliance.
Pacific Alliance
Recruitment, Retention and Placement Strategies
Pre-College program: empowerment & excitement
about careers in engineering and science
computer building with trig, physics & chemistry
High School to University Bridge: Summer
experiences for entering freshman
Internships with Calculus Prep
Graduate School
Peer mentoring & co-enrollment
Presentations and technical papers
Organized study groups
Collaborative experiences
Faculty cross-cultural training
Faculty mentoring
Internships
National & international conferences
Grant writing experience
Graduate research and undergraduate research
Workshop for Teaching Assistant (TA)
instruction
Faculty Mentoring
Peer Mentoring
Supporting community
Professional mentoring
Graduate student
mentoring
Research
Undergraduate Retention
Learning Community Co-enrollment
Team building
Group study
Advising
Scholarships
Internships
Overview
Our objective is to effect a systemic
change in the hiring patterns of
Indigenous Americans in the fields of
science, technology, engineering, and
mathematics (STEM) by increasing
the number of individuals on a career
path to leadership within STEM fields.
We will double the 2005 Indigenous
STEM graduation rate over the next 5
years.
Intellectual merit: Beginning with
high school juniors, structured
programs lead students each step of
the way through high school, into the
undergraduate years, on to graduate
school, and into professional life. At
each level the goal is to create
empowerment and excitement around
engineering and science. We have doubled the Alliance
wide Indigenous STEM graduation rate from 46 students in
2000 to 95 during the last academic year. Enrollments of
Indigenous students in STEM disciplines have climbed from
344 students during the 2001- 2002 academic year to 795
during 2004-2005. We have leveraged $3.2 million in NSF
funding with contributions of approximately $11 million
dollars from our many partners.
Broader Impact: Our students are among the poorest people
in the nation. The parents of some of our Alaska Native
students were raised on the tundra as nomads and are the
first generation of people in their families to ever use money.
Indigenous students have historically come to our
Universities under-prepared in math and science. We
would do years of remedial work at the University before
these students were able to successfully complete a
University level course. In many of the high schools with
high populations of Native students, coursework was not
available that would foster success in STEM degree
programs. We are now bringing Indigenous people who are
prepared in math and science to Alliance Universities in
numbers that are unprecedented at our institutions. They are
graduating and moving on to graduate schools. At UAA, the
University is in construction phase for a 12,000 square foot
building to house the Pacific Alliance and the Indigenous
Peoples Institute for Engineering and Science Education.
The new Institute will be a focal point as our programs are
replicated across the nation. We are having a profound and
positive impact on the students, their families, and their
communities that will endure for generations.